National Center for Geographic Information and Analysis

This award for a National Center for Geographic Information and Analysis (NCGIA) is made to a consortium consisting of the University of California at Santa Barbara, the State University of New York at Buffalo, and the University of Maine at Orono. NCGIA research will advance the theory, methods, and techniques of geographic information analysis (GIA) based on geographic information systems (GIS). Three impediments hamper more effective GIS-based analysis: deficient capabilities for data-handling, insufficient analysis and modeling capabilities, and meager understanding of applicability and user acceptance. Research addressing such impediments will at the outset focus on the accuracy of spatial data bases, languages of spatial relations, scale dependence in representations of cartographic features, and the value of geographic information in decisionmaking. Additional initiatives will evolve from the first four. The NCGIA will augment the nation's supply of experts in GIS and geographical analysis by offering educational programs will increase the quantity and quality of GIA/GIS degrees. Graduate, junior faculty, and postdoctoral fellowships will channel students into academic careers. The NCGIA will create curricula and conduct summer institutes to upgrade GIA/GIS instruction nationwide. The NCGIA will act as a central clearinghouse for disseminating information regarding research, teaching, and applications in GIS and related fields. NCGIA will promote the diffusion of analysis based on GIS throughout the scientific community. Consortium faculty now conduct collaborative research with government agencies and the private sector. The consortium will expand current collaboration into a comprehensive outreach program that will match NSF funds with government and industrial support for cooperative work on problems of common interest. Workshops, seminars, conferences and a publication series will disseminate NCGIA findings. Science and society require information systems that can accommodate exceedingly large spatially-referenced data bases to support analysis and modeling of complex spatial phenomena. Geographic information systems can perform logical, statistical, and mathematical operations on maps. Information from different sources can be brought to a common projection and scale, analyzed, and displayed far more readily than is possible with hard copy maps. The NCGIA will narrow gaps among theory, technology, and applications in GIA/GIS in the engineering, natural, and social sciences. It will ensure that the nation's needs to capture, process and analyze geographic data in support of scientific research, environmental analysis, and civil administration are well met during the remainder of the century.